Estimation of Real Business Cycle Models with Fiscal Policy

Although real business cycle models show some promise in being able to explain macroeconomic fluctuations, the results from the statistical testing and estimation of these models have been fairly disappointing. Building on previous work on simulation estimators, the first part of this project will focus on estimating these models from a perspective which is more rigorous than existing techniques. With the use of simulation estimation, it will be possible to shed light on questions about which aspects of the model might be inconsistent with real data,and which features of the data are important for which parameter estimates. The second part of the proposal concerns the integration of a serious treatment of policy analysis into the real business cycle model. The goal is to envelop a framework in which various approaches to policy analysis can be analyzed and evaluated, and to derive conditions under which each approach might be valid. Ultimately, the empirical implications of the model will be compared to U.S. post-war data. One of the side benefits of this research will be a set of computer programs which implement the techniques developed in this project.